Behavior Traditionally Connected Timber Frames

Project will develop analysis capability for connected timber frames, such as mortise and tenon joints, and fork and tongue joints in post and beam construction. Results will be useful in analyzing the safety of historic structures and assure safety in new construction.